ISCAS 2022 Student Participation Grant

This proposal requests funding to support a number of US-based students for attending the 2022 version of the annual IEEE International Symposium on Circuits and Systems (ISCAS) with the intention of exposing them to the discipline and to encourage them to pursue careers in emerging issues in the area of Circuits and Systems research. Participation in this symposium is considered an important part of the graduate-school experience of students in computer engineering, providing the opportunity to interact with senior researchers and to be exposed to leading-edge work in the field. The support will enable dissemination of scientific knowledge to students who would otherwise not have the experience. This student-travel support will also facilitate the development of promising graduate students, and will thus indirectly also help train the workforce of the future in the important area of computer engineering. Women and underrepresented groups will be given due consideration for receiving support through this grant.

The International Symposium on Circuits and Systems (ISCAS) for more than 50 years has been the premier conference where emerging trends and novel concepts of Circuits and Systems research have been explored. The 2022 version of this annual conference will return to the US soil in Austin, TX after 5 years. The 2022 edition of this conference will address key trends and challenges in the area and includes Keynote and Plenary Talks, Technical Paper Sessions, Tutorials, Panels, Special Sessions. The conference committee has set up adequate evaluation criteria to select qualified students from a pool of applicants formed via open advertisement. While the requested funds will primarily be used for supporting graduate students, the committee may also consider a small number of undergraduate applicants in order to better reach a diverse population of potential researchers in this field.